Track 4: Center for Equity in Engineering: Organizational Transformation for Graduate Education

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

University-level administrators, College-level personnel, academic departments, graduate programs, and individual advisors all play important roles in graduate engineering education. Integrating these influencers to achieve an overarching, coordinated goal is quite challenging. This project creates a center that will focus on organizational transformation for graduate education at Virginia Tech (VT). Such an effort is important because the highly decentralized nature of graduate education in engineering makes integrated reform strategies extremely challenging. Importantly, the Center will emphasize changing systems to promote student success rather than trying to “fix” graduate students. We will focus on organizing, aligning, and integrating many interconnected systems and processes within the system of graduate education (e.g., recruitment, admissions, funding, research, professional development) to promote student success and wellbeing. We envision a graduate engineering education where every student will be provided with opportunities to develop their technical and professional skills, establish their identities as professional engineers, and be engaged in the community. This center will provide a model for other institutions to support a graduate education enterprise within colleges of engineering that will be welcoming to all.

This Center will make significant intellectual contributions in advancing understanding of how to enact organizational transformation in graduate engineering education. Grounded in a collective impact framework and an action research design, this project will be organized around four pillars: 1) revamping policies, 2) aligning structures, 3) shifting culture, and 4) transforming practice. Through coordinated efforts, the Center will reorient existing decentralized structures, resource flows, and decision processes and foster both bottom-up and top-down change processes. The Center is designed in a way that integrates existing organizational structures, builds infrastructure so that activities in progress can become better coordinated and impactful, includes a variety of mechanisms to ensure successful engagement of stakeholders throughout the organization (i.e., administrators, faculty, and students), and ensures multiple, regular opportunities for critical feedback and evaluation. The Center leadership team includes every VT College of Engineering administrative position associated with graduate education as well as scholars and leaders in graduate education. Using an Action Research lens, we will document successes and failures, resulting in complementary insights and robust findings that will advance understanding of what promotes and impedes transformative change. This Center will include efforts that span two VT campuses: a well-established campus in Blacksburg, VA and the new Innovation Campus in Alexandria, VA, which exclusively focuses on graduate engineering education. This design will enable insights on how to pursue organizational change in two distinct contexts: one with existing inertia and one that is void of historical baggage. In addition to a dissemination strategy that includes a variety of different formats to reach a range of audience needs, the Center will engage multiple working groups of graduate students and faculty which also will broaden the impacts of this Center as ideas from their engagement are built into their future work and interactions with colleagues and graduate students.